Three-Dimensional Stirring by Parallel Computation and Geodynamical Applications

The problem of stirring of chemical tracers in the mantle will be addressed by developing three-dimensional computer models of flow and tracer advection. Some comparable and complementary laboratory studies of stirring will be undertaken in Australia. Since parallel computers hold the greatest promise of providing the large improvements in computer performance that will be required for detailed three-dimensional modelling, the models will developed for a parallel computer. The Connection Machine is the favored computer.